Implementation of Calculus Reform at a Comprehensive State University with Project CALC

Project Calc, developed through an NSF grant to Duke University, is being implemented at the University of Mississippi. Materials are being adapted for the implementation at this institution, including the use of alternative software. These materials will be made available for other institutions, as well as types and levels of support necessary for faculty and graduate assistants to effectively use these materials and approaches. In addition to providing a model for implementation at a comprehensive state institution, this project will serve as a test site for the Mississippi Alliance for Minority Participation.